Experimental Partnership - Meridian: An Integrated Toolkit for Developing Interactive Distributed Applications

EIA-0000433
Betty H. Cheng
Michigan State University

TITLE: Meridian: An Integrated Toolkit for Developing Interactive Distributed Applications

The proposed project involves the integration and validation of MERIDIAN, a collection of tools designed to help automate the development of IDAs. Collectively, these tools will support diagram-based modeling, rigorous correctness analysis, software reuse, automated code generation, and software visualization. Moreover, they will interact with one another through explicit design representations with formally defined semantics, enabling requirements to be traced from high-level models to low-level code.

Interactive distributed applications (IDAs) are those that involve direct interaction with users and whose processing and data components are distributed across a network. Examples of IDAs include distributed data management systems, on-board driver/pilot navigation assistance systems, computer-supported cooperative work environments, distance education tools, and a variety of public safety systems. The increasing interest in IDAs is fueled by several factors, including the advent of the World-Wide Web, the development of new middleware technologies, the introduction of scripting languages for graphical user interfaces, and the availability of new network services and protocols.